Dietary Minerals and Electrolytes Manipulation on Growth andPhysiology of Dairy Cattle.

Dr. Jackson plans to study the effect of mineral elements on the physiological processes of dairy cattle. Since most attention in the area of animal nutrition has been focused on the nonruminant, the results of this work will be of interest.